Operator Theory and Complex Geometry

The PI intends to study complex geometry using the techniques of
operator theory. This includes studying analytic subvarieties of
bounded domains in several variables, where the theory of
vector-valued Hardy spaces introduces extra techniques to several
complex variables. The PI also intends to study Hilbert spaces
of Dirichlet series, with the intention of using Hilbert space
geometry to shed light on classical questions about Dirichlet
series.

Feedback mechanisms have been used in engineering for a long time,
largely to stabilize systems. The design of such systems is
difficult, not least because the system that one wants to
stabilize is, in practice, not known exactly, but only
approximately. Many ad hoc approaches were
used, but about 25 years ago it was realized that many problems
can be approached systematically using techniques from
an area of mathematics called Operator Theory. This has been so
successful that the range of questions engineers now attempt
to answer has increased dramatically, and there is a great need to
find mathematical answers to the questions now being formulated.
One area of importance is the multi-dimensional generalizations
of questions that are well understood in one dimension. The PI
proposes to work on several such problems.